MOREnet Regional Network Proposal

9301550 Mitchell The Missouri Research and Education Network (MOREnet) is establishing a connection to NSFNET via a 56,000 bits per second line for two community colleges and a community college district comprising three campuses. The institutions are Mineral Area College, St. Charles County Community College, and the Metropolitan Community College District. The connection enables the faculties and students to communicate and collaborate with the international scientific and educational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years. *** 1 From: dstaudt at NOTE 6/8/93 2:43PM (976 bytes: 18 ln) To: gclavon at nsf15 Subject: MOREnet ------------------------------- Message Contents ------------------------------- ---------------------- Original Header Lines (From NOTE) ----------------------- X-Sender: [email] ------------------------------- Message Contents ------------------------------- ABSTRACT "MOREnet Expansion Phase 4" University of Missouri - Columbia PI: William Mitchell NCR-9312155 This award adds three higher education institutions to the MOREnet state network. The new institutions connect to a hub located at the University of Missouri at Columbia. Faculty and students at the institutions will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.